Connecting Fundamental Physics and Cosmology

Research in theoretical elementary particle physics will focus on the
extremely early universe, including the implications of fundamental physics
and superstring theory for cosmology, and the role of cosmology as a testing
ground for new ideas. Superstring theory is a way to unify all forces,
including gravity and electromagnetism, and an understanding of its
cosmological implications is crucial to extending our knowledge of the
earliest times in the universe. This research will investigate how specific
models of new physics account for the evolution of the universe, and how we
may read their fingerprints on the sky today. Cosmology has proven to be an
important way to experimentally probe particle physics, and the discovery of
a signal of new physics in cosmological data would fundamentally change our
understanding of the universe.